Influence of Statistically Generated Fiber Breaks in a Unidirectional Composite Using a Crack Superposition Technique (Travel Grant)

This is a travel award to participate and present a paper at the International Conference on Advanced Composites to be held at Wollongong, Australia, February 22-23, 1993.